SHF:Small: Crash Scene Investigation - Debugging Programs that Fail Unexpectedly

Computer systems are pervasive in all aspects of modern society. The
software running on these systems, however, is difficult to implement
correctly, and many failures occur after software is already released to
the public. Unfortunately, these "post-deployment" failures are often
the most difficult to fix. Failing runs are difficult to reproduce and
analyze, as information about these failures is much more difficult and
costly to obtain than failures occurring before software release. The
PI's research will address this problem by making post-deployment
failures more informative without sacrificing the end-user experience.

Specifically, the project will tackle this problem on two fronts. First,
deployed programs will perform low-cost, customizable tracing to enhance
core memory dumps produced by failures. The project will investigate methods
using both static and dynamic analysis to reduce the cost and improve
the utility of traced information. Second, the enhanced memory dumps
will require development of powerful new automated postmortem analyses
to partially automate the process of debugging and program
understanding. These analysis results can then be used to further
inform useful tracing strategies via dynamic feedback from previous
failures. Thus, information about a particular post-deployment fault
could continually improve as more failures are observed. This automated
iterative improvement of postmortem analyses has the potential to
substantially reduce effort required to fix post-deployment faults, thus
leading to faster and more accurate patches, resulting in greater
reliability for the software we all rely upon in our daily lives.